Conference on: Systemic Reform in Science and Math Education in Rural Poor Hispanic and American Indian Communities

9450526 POODRY The Regents of the University of California propose to conduct a 2 1/2 day workshop focusing on educational issues and barriers experienced by rural poor Hispanic and American Indian students. The proposal will be under the direction of Dr. Clifton Poodry. The director plans to convene a small group (~200) composed of representatives from a variety of professional societies concerned with educational issues of these groups, as well as representatives of Hispanic and American Indian educational activities. The conference proposes to focus on a medium for interaction among the participants, and on enhancing the participants understanding of systemic approaches to educational reform, as well as providing insight and recommendations to the National Science Foundation in the further development of the Rural Systemic Initiative. ***